North Carolina Technology Development Initiative: A Novel Approach to Assess, Disseminate and Test a University/Venture Capital/Incubator Partnership Model

0090595
Lea

This award is to the University of North Carolina System to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners include the University of North Carolina System; Centennial Venture Partners Fund; Longleaf Venture Fund; NC Technological Development Authority; NC Biotechnology Center; Research Triangle Institute; NC Board of Science and Technology; NC Center for Entrepreneurship and Technology; NC Economic Development Regions.

Proposed Activities
This award has the following activities: education; invention prospecting; technology assessment; intellectual property management; business development planning and fundability assessment; license negotiations; venture capital networking; strategic planning for involving the entire University of North Carolina system.

Proposed Innovation
The proposed activities will study technology transfer in a multi-institutional setting to develop models for improved tech transfer methods. It will involve characterization of successful technology transfer, develop a training program to facilitate faculty understanding of technology transfer, enhance innovation, develop a model to optimize the capability of each campus type to work with the state's science and technology infrastructure to manage intellectual property for the economic development of the state.

Potential Economic Impact
General increase in economic well being in North Carolina plus more involvement of the University of North Carolina System in the innovation process will occur.

Potential Societal Impact
Potential societal impacts include more economic growth for the region; jobs for university graduates; higher salaries for the underdeveloped regions of the state.